ITR: End-User Software Engineering

Abstract

The objective is to improve the reliability of software produced by
end-user programming languages in general, and by spreadsheet
languages in particular. The approach is to address software
engineering issues as an integrated whole in ways that incrementally
interact with each other and with the user. For example, the system
will notice the user's reactions to sample values she tests, and will
then suggest general principles about the spreadsheet, encouraging the
user to refine or modify the suggestions. This collaboration between
the system and user will incrementally generate formal specifications
as the spreadsheet evolves. These specifications can in turn be fed
back to enhance reliability -- by automatically suggesting appropriate
test values, by helping locate faults, and by ensuring continuing
consistency with the specifications. The research involves three
facets: developing an interactive mechanism for user-system
collaboration, developing algorithms for the system's part of the
collaboration, and conducting experiments to evaluate effectiveness.
This is the first research attempting to bring fundamental software
engineering principles to bear on end-user programming. Since the use
of end-user-written programs and spreadsheets is very widespread and
their lack of reliability is pervasive, improved reliability will
impact a potentially huge number of business and personal computer
users.